The 21st International Conference on the Physics of Semiconductors, Beijing, China, August 10-14, 1992

Funds are requested to provide partial international travel support for US participants to present papers at The 21st International Conference on the Physics of Semiconductors (ICPS-21). The funds would be used exclusively for the support for graduate students, and young researchers and faculty. (20 graduate students/young researchers (contributed papers) and 4 key speakers (invited papers)). The selection would be based upon need and achievement.